CRII: RI: Secure Multi-Agent Reinforcement Learning Algorithms

Recent years have witnessed significant advances in reinforcement learning (RL), an area of machine learning that achieved great success in solving various sequential decision-making problems. Advances in single‐agent RL algorithms sparked new interest in multi-agent RL (MARL). The goal of this project is to build robust, secure algorithms for autonomous systems that are built using MARL. The project team will investigate a novel threat that can be exploited simply by designing an adversarial plan for an agent acting in a cooperative multi‐agent environment so as to create natural observations that are adversarial to one or more of its allies. For example, in connected autonomous vehicles, one compromised vehicle can
drastically disrupt security, causing confusion and mistakes that result in poor performance and even harm to humans who rely on these systems. The project team will build a robust MARL algorithm to such adversarial manipulations. The educational plan for this project includes developing a suit of tutorials on analyzing the security and robustness of MARL algorithms, designed for use in a graduate course or as a tool for MARL researchers. The project team will also contribute to educational outreach by involving graduate and undergraduate students from underrepresented groups.

The project is built upon three overarching objectives (1) study how attackers can exploit MARL vulnerabilities,(2) develop a more robust MARL algorithm by training each agent using the counterfactual reasoning about other agents’ behaviors, and (3) create a novel online formal verification method to satisfy the security and safety requirements during the execution of our proposed MARL algorithm. More specifically, for the first objective, the project team will prove the feasibility of using a compromised agent to attack its allies in MARL systems through its actions. The second objective will reverse‐engineer the attack strategies to develop a robust MARL algorithm that models the agents’ behaviors during training and correlates their actions using counterfactual reasoning. In the third objective, an online formal verification model will be developed to detect any deviations in agents’ behaviors using a predefined set of security and safety specifications.